Molecular Modeling, Discovery, and Interfacing for Introductory Chemistry

The Chemistry Department will purchase computers and software for molecular modeling, electronic modeling, data manipulation, graphing, interfacing hardware, and output devices. This equipment will be used to transform the traditional introductory chemistry course to an innovative, interactive approach to the discipline. The goals are to promote the following: (l) more student discovery of chemical trends and relationships, (2) more student decisions about the chemical questions being asked and the data being collected, (3) more student/ instructor interaction. The equipment will acquire and manipulate data, simulate experiments, chemical reactions, and other dynamic processes, and serve as a chemical tutor.. The creative use of these attributes of the computer will blur the distinction between lecture and laboratory.